42nd Gordon Research Conference on Separation and Purification

Abstract

Proposal number: 0080910
Proposal type: Investigator Initiated for Conference Support
Principal investigator: Rakesh Agrawal
Affiliation: Gordon Research Conferences / Air Products and
Chemicals, Inc.

The 42nd Gordon Research Conference on Separation and Purification

This award supports partially the participation by invited speakers and discussion leaders from academic institutions at the Gordon Research Conference on Separation and Purification to be held in New London, NH, from August 6 to August 11, 2000. The sessions scheduled for this year's conference include Bioseparations, Crystallization of Organic Materials, Nonideal and Reactive Distillation, Extraction, Novel Separation Methods and Equipment, Simulation of Mixed-gas Adsorption, Membrane Separation, and Microchemical Separation. In each session there will be two or three invited speakers. A poster session is also planned.

The Gordon Conferences are kept small and are structured to give the participants considerable time for discussion and interaction. Such gatherings provide a vehicle for communication between research groups, which will be represented here by researchers not only from U.S. universities but also from key industrial organizations. This grant is specifically targeted to permit attendance by ten advanced-level graduate students in the conference as well as university faculty. The impact of the conference is expected to arise from the communication between industrial and academic researchers to identify key research issues.